Collaborative Research: Frameworks: ML4GW, a machine learning ecosystem for gravitational wave data analysis

Since the first direct observation of gravitational waves in 2015, a new field of astronomy has fundamentally changed how the universe can be explored. A gravitational wave is a ripple in spacetime produced when two extremely dense objects, such as black holes or neutron stars, collide. The detectors that observe these signals now record hundreds of such events per year, and the rate is expected to grow to several events per day within the next few years. Sifting through this flood of data to find the rare astrophysical signals buried in detector noise, and then alerting telescopes around the world quickly enough to capture the light produced by a collision, is one of the most demanding computational problems in modern science. This project develops an open, community machine learning framework that makes gravitational-wave discovery faster, more accurate, and more accessible. The framework will reduce the time between the crossing of a gravitational wave through the detectors and a public astronomical alert to less than a second, make it possible to detect events that traditional analysis methods miss, and lower the computing cost of these analyses by orders of magnitude. The project trains the next generation of scientists, including high-school students, undergraduates, graduate students, and researchers at smaller institutions, by sharing open code, open data, open trained models, and open lessons. It also strengthens shared national computing infrastructure that benefits not just gravitational-wave science but also particle physics, neutrino astronomy, and time-domain astronomy more broadly, advancing the national interest by accelerating discovery and broadening participation in science.

The project develops ml4gw, an open-source PyTorch-based machine learning (ML) framework for gravitational wave (GW) data analysis. ml4gw provides Graphics Processing Unit (GPU)-accelerated implementations of the data ingestion, signal-processing, waveform-generation, and inference operations that historically ran on central-processing-unit clusters of the Laser Interferometer Gravitational-wave Observatory (LIGO) Data Grid, and integrates the resulting models into the international low-latency alert pipeline. The award covers three coordinated work packages. The first extends model coverage to long-duration binary-neutron-star and neutron-star-black-hole signals using multi-rate and multi-band processing, integrates auxiliary detector channels through multimodal architectures, and develops state-space and ensemble models together with a shared foundation backbone from which task-specific models can be fine-tuned. The second work package builds production-grade cyberinfrastructure that targets the National Artificial Intelligence Research Resource, the National Research Platform, and the Open Science Data Federation, including an Inference-as-a-Service deployment built on the NVIDIA Triton inference server and on the SuperSONIC service that already supports particle and neutrino physics experiments. The third work package delivers community resources: standardized benchmark datasets with persistent digital object identifiers on Zenodo, versioned reference models on Hugging Face, comprehensive documentation and tutorials hosted on Read the Docs, containerized release artifacts, an upgraded continuous integration system that reduces test runtime by an order of magnitude, and an agent-driven development scaffold for community-led code contribution. Training and outreach activities include hands-on tutorials at international collaboration meetings, an annual hands-on lesson at the University of Minnesota Time-Domain Astrophysics Summer School, and a public machine learning challenge focused on binary-neutron-star detection that builds on a prior challenge that engaged hundreds of teams and roughly a thousand individual participants.

This award by the Office of Advanced Cyberinfrastructure is jointly supported by the Physics at the Information Frontier Program within the Physics Section of the Directorate for Mathematical and Physical Sciences.